CAREER: Towards a Text-Centric Database Management System

The goal of this project is to help users ask complicated
questions over unstructured text and get as results a
concrete answer and not simply pointers to more data, as is
currently the practice with general search engines. The
research examines how to execute efficiently complex queries
over multiple web sources and how to estimate the quality of
the returned results. The research also examines how to
execute queries over subjective, sentiment data by examining
the economic context in which the stated opinions are
evaluated. The experimental research is strongly linked to
the educational goals of the project that include, among
others, modernization of the undergraduate curriculum on
databases to include the latest trends in database and
information systems and the introduction of a graduate course on
the transformative role of search technologies in business and
society. The results of this project will give the power
and tools to the users to quickly process the vast amount of
available data on the web and get back answers (and not more
documents or data to process). The systems built as
part of this project, together with the related data sets, will
be available on the project website (http://text-centric-db.stern.nyu.edu/),
allowing everyone to evaluate complex queries over web data
and build novel applications on top of the built infrastructure.